EAGER: Laboratory Exploration of Speaker-Wire Vortices - A Novel Coherent Structure in Gravity-driven Slope Flows

On clear nights, colder air slides downhill under gravity, which is called a slope flow. Slope flows occur in a layer of air near the ground where air density decreases with height. This condition is called stable stratification. In stable stratification, buoyant forces resist vertical motion. Such conditions are common at night and in polar regions. Stable stratification controls mixing of heat and pollutants near the ground, influences air quality in cities, and shapes local weather in mountain valleys. Gravity-driven flows owing to density differences also arise in engineering applications, including building ventilation, liquified gas storage, and nuclear reactor thermal management. Weather prediction models do not represent slope flows well. This leads to major forecast errors affecting agriculture, transportation, energy management, defense operations, and emergency response. The problem stems from turbulence in slope flows. Turbulence is the chaotic, swirling motion that mixes heat and momentum in the atmosphere. Normally, stable stratification suppresses turbulence, but observations repeatedly show sudden bursts of turbulence in exactly these conditions. This project will use model experiments to explore the origin of turbulence in slope flows.

The project team recently discovered a new type of flow structure in computer simulations of slope flows. These structures resemble a twisted pair of wires and are called speaker-wire vortices. The team believes these structures collide and merge as they travel downhill, and that these collisions trigger turbulence even when conditions should suppress it. To test this idea, the team will search for speaker-wire vortices in a laboratory for the first time. Experiments will use a tiltable water tank in which stable stratification will be created by carefully mixing salt water with fresh water. The tank will be inclined to mimic a slope, and a laser-based imaging technique will be used to measure the flow in high detail. If speaker-wire vortices are confirmed, it would challenge a core assumption in weather prediction and other gravity-driven flow models — that stable conditions suppress organized turbulent motion. Correcting this assumption in computer models could lead to better forecasts, benefiting farmers, emergency managers, and engineers working on nuclear reactor safety, building ventilation, and liquefied gas storage.